Zero-Dissipation and Zero-Dispersion Limits Arising in Fluid Mechanics

The Principal Investigators will study several related
asymptotic limits of nonlinear partial differential
equations arising in fluid mechanics. Interest is focused
on how solutions behave in limits where certain terms in
the equations become increasingly negligible. For the
situations in view here, these terms correspond to the
physical effects of dissipation and dispersion. It is
planned to work at two levels of complexity. The first,
and easier level is that of model equations for wave
propagation where nonlinear, dispersive and dissipative
effects are all present. Both qualitative and quantitative
information will be sought. The information obtained
will yield information helpful to modelling near-shore
zone processes. At a more complex level, it is planned
to investigate various limits of the Navier-Stokes
equations including the inviscid limit for the
Navier-Stokes equations in bounded domains with fixed
boundaries, and for statistical solutions with periodic
boundary conditions (or in all of space). It is also
intended to investigate how well the Navier-Stokes
equations posed in a channel are modelled by dissipative
nonlinear wave equations.

The present award will support research on several interesting
and important asymptotic limits for mathematical models. The
kind of limits under consideration here arise in various
areas of physics, mechanics, oceanography, materials science,
biology, and elsewhere when partial differential equations
are used as models. The problems considered here derive
principally from fluid mechanics, but in so far as we are
successful in our program, there is a broader implied scope.
The zero-limits under study are those associated with
dissipation and dispersion in fluid motion. In various
modeling situations, one or the other of these effects may
be ignored. The question then arises whether or not such
approximations are justified and, if so, under what flow conditions
and over what time scales. These questions are of
theoretical and practical importance since the approximating
equations are often easier to use. This award will support work that
aims to address issues including fundamental points and aspects
that arise in the use of these equations as descriptions of
real phenomena.